Hierarchical Material Model Integrating Multi-Scale Phenomena in Composites

Development and validation of an adaptive, scale invariant materials model, based on microstructural
information that will efficiently account for the material and mechanical behaviors inherent in
composites, is proposed. Our approach involves: (a) Introduction of an adaptive hierarchical and multi-scale
computational model, incorporating image analysis to correlate computational predictions; (b)
Incorporation of architectural flexibility based on Unit Cell approach; (c) Utilization of Independent State
Variables that bridge the micro-to-macro scales; and (d) Account of interfacial mechanisms through
cohesive elements. The intellectual merit relies on the creation of an interdisciplinary program to tailor
computational and fundamental material science, that will ultimately provide the underpinnings for
understanding the mechanics of reinforced structures such as woven, bio, and nanocomposites. Broader
Impact: In the area of basic research and education the innovative and comprehensive approach taken by
this work will promote other research on composite materials aimed at developing a unified, scale
invariant model for FRPCs. (B) In the area of industrial research, this program will affect a wide variety
of industries where significant gains in microscopic characterization and macroscopic behavior is often
stymied by lack of knowledge of micro effects and ignorance of how to bridge the scales.